Trends in Condensed Matter Physics, Seattle, WA, September 16-18, 1999

9974058
Spivak
This is an award to support travel expenses for young investigators to attend the conference on "Trends in Condensed Matter Physics" to be held at the University of Washington, Seattle, WA, from September 16-18, 1999. Topics to be covered include the quantum Hall effect; the metal-insulator transition in two-dimensions; mesoscopic physics of metals and semiconductors; high temperature superconductivity; and, spin glasses.
%%%
This is an award to support travel expenses for young investigators to attend the conference on "Trends in Condensed Matter Physics" to be held at the University of Washington, Seattle, WA, from September 16-18, 1999. Topics to be covered include the quantum Hall effect; the metal-insulator transition in two-dimensions; mesoscopic physics of metals and semiconductors; high temperature superconductivity; and, spin glasses.
***